Developing Numerical Engineering Problems to Accompany Existing and New Cases in Engineering Ethics and Professionalism

There is now a substantial (though still inadequate) body of cases that can be used in the teaching of engineering ethics. Virtually none of the cases, however, have a numerical component. This project includes a workshop to develop numerical problems to accompany existing cases and newly developed cases in engineering ethics. The development of numerical problems promotes the introduction of issues in engineering professionalism and ethics into required undergraduate engineering courses in several ways: * It provides an added inducement to engineering instructors, who are always looking for new problems, to use the cases. * It appeals to students, because it provides a human and social dimension to their technical work. * It mitigates the objection of instructors that there is insufficient time to introduce sections on professionalism and ethics, since there is a directly relevant numerical component in the cases themselves. * It helps to integrate ethics components into technical courses, since the ethics components are more clearly linked to the technical work. * It could provide a model that is more compelling than free-standing ethics cases for introducing ethics sections into engineering textbooks. A workshop develops such numerical problems; and their classroom use is evaluated a year later.